US-Bhutan Planning Visit: Balancing Modernization and Cultural Preservation in Transitioning Third World Cities-Bhutan's Middle Path

0751263
Susan Walcott

This award supports the US-Bhutan Planning Visit: Balancing Modernization and Cultural Preservation in Transitioning Third World Cities- Bhutan's Middle Path. PI Susan Walcott, University of North Carolina Greensboro plus a graduate research assistant and geography undergraduate will collect several remaining data sets to enable finalization of collaborative research with geographers from the Sherubtse College, Royal University of Bhutan and officials from the Department of Urban Development and Engineering Services, Thimphu. The resulting proposal will be submitted to NSF/SBE's Geography and Regional Science Program, which is providing cofunding to support this award.